SBIR Phase I: Novel Radial Magnetic Field Actuator for Fully Flexible Electromechanical Valve

This Small Business Innovation (SBIR)Phase I research project will develop a novel radial magnetic field actuator for fully flexible electromagnetic automotive engine valves. Dramatic improvement in engine performance and reduction in environmental impact is possible with this technology. The imminent international adoption of a 42V automotive power system enhances the approach. A fully electronically-controlled inlet/exhaust valve actuating system eliminates camshafts completely, thus (1) eliminating the packaging restrictions placed upon an engine by conventional camshaft profiling, and (2) allowing optimization of the gas exchange process across the whole engine speed and load range. Commercial applications of the proposed concept include: automotive engine valve actuators, general linear actuators, automotive active suspension, and unmanned aerial vehicle flight actuators.

A major benefit to society of electromechanical valve technology will be better fuel economy. Improving fuel economy is a worthy national goal: it will reduce America's dependence on imported oil, cut the carbon emissions that contribute to global warming, and reduce vehicle operating cost.